Mining Sequential Patterns and Structured Patterns: Scalability, Flexibility, Extensibility, and Applicability

Mining sequential patterns and structured patterns (e.g., trees, lattices,
and graphs) are important data mining tasks, with broad applications, such
as the analysis of customer purchase sequences and Web page structures,
understanding of disease treatments, scientific experiments, transportation
and production processes, detection of anomaly and unusual patterns,
discovery of bio-molecule sequences and structures, and so on.

This project is to perform a systematic investigation of the principles,
algorithms, and applications of scalable sequential and structured pattern
mining, which covers the following issues: (1) development of highly scalable
mining algorithms, including mining max-patterns, closed patterns and top-k
patterns; (2) investigation of highly flexible mining methodologies,
including mining of multi-dimensional multi-level sequential and structured
patterns and constraint-based mining; (3) extension of the scope to cover
sequential or structured pattern-based clustering; and (4) application of
multi-dimensional, multi-level sequential or structured pattern mining for
intrusion detection, Web mining, and other important applications. This
will lead to a set of efficient, scalable, and flexible sequential and
structured pattern mining methods for scientific and industrial applications.